SGER: Magnetic Processing for Enhancement of Lifetimes of Ferrous Metals Subjected to Repeated Stress

9910147
An exciting new possibility has arisen to investigate the enhancement of lifetimes of ferrous metals resulting from magnetic field treatment. The method seems feasible but is as yet scientifically unproven. The objective of this research is to evaluate the technology and to identify the nature of any beneficial effects on the performance of manufactured parts made from ferrous metals. We will also examine how this method works, optimize the conditions for its use and finally if it shows promise, determine how it may best be used.***